CAREER: Spectroscopy of Peptides/Lipids in Magnetically Oriented Membranes

Professor Kathleen P. Howard of Swarthmore College is funded by the Experimental Physical Chemistry CAREER program to develop novel NMR and EPR techniques for oriented samples, and to apply these methods to problems in membrane protein structure and dynamics. The nature of transmembrane helical interactions within bilayer lipids will be probed using advantages of orientation in liquid crystalline states of those lipids.

Professor Howard plans to improve chemistry instruction at her institution at all levels, to be involved in national education and outreach activities through the Biophysical Society and to involve undergraduates in her research program.